A Teacher Enhancement Model for Integrating Computer Microworlds into Middle Grade Mathematics

This three year collaborative between Emory University, Atlanta Public Schools and IBM will develop a proto-typical model for teaching middle school teachers to incorporate mathematical/computer microworlds into the mathematics curriculum. Each year teams of three teachers from five middle schools will participate. Thirteen of the 15 teachers will be minorities. The teachers will participate in intense three day session at IBM, two half-day monthly meetings during the academic year, and with on-site assistance of Emory staff, use the computer microworlds in their regular mathematics classes. Five of these teachers will be chosen to be mentors to the fifteen new teachers of the next year. During the third year, the project will be taught by the Atlanta Public School teachers and staff. Anticipated project products include curriculum materials integrating microworlds into the matheamtics curriculum, teachers development training materials, and complete descriptions of all project activities so that the project can be replicated.